IPY: Ice Planet Earth

The University of New Hampshire Institute for the Study of Earth, Oceans and Space is partnering with the Houston Museum of Natural Science and Evans & Sutherland, Inc. (Salt Lake City) to produce Ice Planet Earth, a 30-minute updateable digital full-dome planetarium show, along with a variety of educational programs by polar researchers, educational materials for teachers, and an Ice Planet Earth Web site maintained by the University. Additional partners include organizations in Pittsburgh, Baton Rouge, Concord, NH, Portland, OR and in Melbourne Australia and Haifa Israel.

The project's science focus is on the key role of the polar regions in globally-linked systems through the viewpoint of Earth as a unique ice and water world. Two updateable pre-show products are being developed a five-minute-long Polar Immersion preview as visitors enter the theaters that incorporates changing high-resolution fisheye images taken by researchers in the field, and Polar Events Update just before the main feature begins that will be presented live by planetarium staff. Estimated attendance over the life of the programs is estimated to be a minimum of 1.5 million. Evaluation is being conducted by the Program Evaluation and Research Group (PERG) at Lesley University, Boston.